Mathematical Sciences: Function Algebras

Professor Wermer plans to generalize his work with H. Alexander on the polynomial hull of a convex set in complex n- dimensional space lying over the unit circle. Natural generalizations occur when the circle is replaced by the unit sphere in complex 2-space or by the boundary of a multiply connected domain. The area of application of these ideas is the theory of analytic functions of several complex variables. An analytic function is one which is differentiable in the sense of elementary calculus but where the variable is a complex number. The imposition of the requirement of differentiability leads to a large but remarkable class of functions whose properties are still poorly understood in higher dimensions. Professor Wermer will investigate some of these properties.